Mathematical modeling, analysis and computation arising in continuum mechanical descriptions of DNA

Gonzalez
0102476
The investigator studies constitutive relations for
continuum rod models of DNA and develops new tools for analyzing
the supercoiling and packaging of DNA and other material
filaments. The main objectives of the project are to apply the
theories of statistical mechanics and stochastic differential
equations to develop constitutive relations for continuum rod
models of DNA that are provably consistent with detailed,
sequence-dependent structural information at the base-pair level;
to apply the new concept of global curvature to develop a
geometrically exact and computationally tractable formulation of
the self-contact constraint that plays a central role in the
supercoiling and packaging of DNA and other biological filaments;
and to develop efficient and provably accurate computational
methods for continuum rod models that faithfully respect global
geometric constraints as well as qualitative features of the
underlying system.
Biologists and chemists now believe that the linear sequence
of base-pairs along a DNA molecule contains not only a genetic
code, but also a structural code that governs the global
organization of the molecule and its susceptibility to
interactions with other molecules. An understanding of this
structural code requires realistic mechanical models of DNA over
a wide range of length scales. The research project pursued by
the investigator is aimed at the further refinement of medium- to
long-scale continuum models. In particular, methods are
developed for estimating local, sequence-dependent material
parameters and for describing global, finite-thickness effects.
Results from this research will be useful in developing a greater
understanding of the physical and mechanical properties of DNA,
in modeling how DNA may twist, bend and supercoil upon itself,
and in studying how DNA and other material filaments may be
optimally packed in confined geometries.